Basal Forebrain: Differential Vulnerability and Function

These studies are designed to investigate the effects on learning and memory of the selective loss of specific neurons in the basal forebrain of rats. The basal forebrain may play an important role in many cognitive functions related to attention, learning and memory. The lesions will be produced by injection of two different neurotoxins. These studies will provide valuable information on the selective vulnerability of selected basal forebrain cells and the biochemical and behavioral consequences of their loss.